REG: Analysis Equipment for Low-Emission, High-Efficiency Catalytic and Noncatalytic Gas Turbine Combustors, ApplianceBurners, and Porous Burners

Abstract CTS-9500076 Dibble This proposal is for funds to purchase new state of the art equipment consisting of a combustion product sampling system for NOx, CO2, CO, O2, and Total Hydrocarbons (THCs). This equipment will be used in catalytic combustion studies, stationary gas turbine work, and appliance combustion and porous burner projects. Although the requested equipment already exists in the PI's laboratory it is vintage late 1970, difficult to maintain and of lower sensitivity than the requested equipment. These programs will consist of both an experimental and modeling components.